SBIR Phase II: A Rotary Aeroponic Cultivation Chamber (RACC) for Household Use

The broader impact of this Small Business Innovation Research (SBIR) Phase II project is to provide a method to grow produce for individuals and residential consumers, independent of location, or season of the year. By tuning the effects of light interactions, this small rotary aeroponic appliance will create a new market for high-margin seed pods. Rotary aeroponic growing systems have the potential to reduce food waste, potable water consumption, and energy consumption by decentralizing the production of highly perishable produce within a consumer's home. This project offers an automated indoor gardening appliance and a subscription to low-cost organic seed pods delivered to and grown directly at home. Converting highly perishable goods into non-perishable subscription seed pods may have the potential to reduce food prices and make more food available throughout the world.

Rotary aeroponic cultivation is the method of growing plants on a rotating cylindrical tower that is affixed vertically within a controlled environmental chamber. The key innovation in this project is the coupling of rotary aeroponics with tunable lighting to enhance the growing efficiency of the plants. Phase II research will examine how the wavelengths and timing of the lighting can impact plant photomorphogenesis. The tower design is expected to provide a larger surface area for growing plants in comparison to traditional vertical farming methods, increasing the number of plants that can be grown in a smaller space with less power consumption. The goal of this project is to successfully grow a healthy polyculture assortment of leafy green vegetables in a food safe environment. The multi-spectral light will be used to learn how to maximize plant yields, minimize food safety risks, and enhance the taste profiles of different plant types to ensure the best user experience.